FASEB Research Conference: Cellular & Molecular Genetics July 31-Aug 5, 1988, Saxons River, UT.

This is an award to support a "FASEB Conference: Cellular and Molecular Genetics" to be held July 3l-Aug 5, 1988 at Saxons River, UT. This meeting provides the opportunity for scientific working in different systems and with different approaches to interact in a favorable environment for in depth discussions.